Nonlinear Problems in Symplectic Geometry and Complex Geometry

Abstract

Proposal: DMS-9802479
Principal Investigator: Gang Tian

The project addresses some fundamental problems from symplectic geometry
and Kaehler geometry. The first part concerns the existence of
Kaehler-Einstein metrics with positive scalar curvature. These metrics
provide solutions of the Einstein equation on Riemannian manifolds. In
the second part, the principal investigator (PI) intends to further study
new invariants, often refered as GW-invariants, of general symplectic manifolds and find more applications to Hamiltonian systems, symplectic topology and geometry. This part also contains very basic problem of understanding structure of GW-invariants and its possible relation to particular integrable systems.
The PI also suggests to study some related nonlinear PDE problems which
arise from physics and geometry.

Problems in this project were motivated by our desire of probing
mathematics of basic physical laws under suitable conditions. For example,
GW-invariants were inspired by a sigma model theory coupled with gravity in
mathematical physics, and they extend classical enumerative geometry which
involves counting curves through a number of points or intersections of
curves. The resolutions of these problems will provide new mathematical
insights of Einstein equation in general relativity, quantum field theory,
mirror symmetry phenomenon in string theory. Our study will also deepen
our understanding properties of symplectic manifolds, algebraic manifolds
and Calabi-Yau spaces.